Pan-American Advanced Studies Institute: Computational Materials Science for Energy Generation and Conversion; Santiago, Chile; January 8-22nd, 2012

1123536
Stewart

This Pan-American Advanced Studies Institutes (PASI) award, jointly supported by the NSF and the Department of Energy (DOE), will take place during January, 2012 at the Pontificia Universidad Católica de Chile, in Santiago, Chile. Organized by Dr. Derek A. Stewart and Prof. Richard Hennig from Cornell University, the institute will focus on computational materials science for energy generation and conversion. Through lectures, hands-on labs, and discussions, the workshop will introduce graduate students and postdocs to powerful computational methods and state-of-the-art simulation codes that can be used to predict macroscopic properties of materials such as crystal structures, defect energies, electronic band structure, vibrational properties, reaction pathways, electronic and thermal transport, and photonic properties.

Through the integration of theory and computation across the scientific disciplines of materials science, chemistry and physics, this PASI will provide an educational experience that will prepare graduate students and postdocs for careers in computational materials science. Special roundtable discussions will highlight critical areas for future energy research and provide practical career advice for young scientists. Other goals of this PASI include broadening the participation of underrepresented minorities and building lasting links among young scientists in the Americas. A website will be developed, with access to workshop presentations, tutorial materials, and web-accessible videos of lectures and tutorials.